MSPA-MCS: Data-Driven Parallelization of Time in Molecular Dynamics Simulations

Conventional parallelization strategies do not scale
well when the computational effort arises from the
need to simulate to long time spans, rather than from
large state space. Molecular Dynamics simulations
constitute an important class of applications where
this proves to be a bottleneck. The investigators
develop a new approach to parallelization of Molecular
Dynamics, which is based on the observation that
simulations typically occur in a context rich in data
from other related simulations. They use such data to
parallelize the time domain, which yields a more
scalable algorithm. This approach is based on the
observation that long time-spans are often encountered
in simulations with multiple time scales. The fine
scales are responsible for the large computational
effort. However, the important contribution of the
fine-scales is often to the effect they have on the
coarse scale. The investigators use reduced order
modeling to identify important coarse scale effects.
They use clustering and machine learning to
dynamically determine the relationship between the
simulation being performed and prior data. They use
ODE and controls theory for stability analysis,
uncertainty estimation, and system identification.

The investigators validate their techniques using a
variety of realistic applications in nano and bio-nano
materials. The importance of the applications chosen
arises from the fact that materials have historically
played a pivotal role in human progress. An indication
of their importance lies in the fact that eras of
human progress, such as the iron age and the bronze
age, are named after the materials that contributed to
such progress. Nano and bio-nano materials, designed
based on fundamental understanding at the atomic
scale, promise yet another revolution, leading to
products such as fuel efficient cars, disaster
resistant structures, and new ways of treating
diseases. The investigators' techniques remove an
important impediment to such developments.
Furthermore, the students involved obtain training in
interdisciplinary research. Inclusion of a
collaborator with a joint appointment at an HBCU
ensures that under-represented students too benefit
from this work.